Studies in Geometric Optimization and Related Problems

This is work on optimization problems that arise in computational geometry and related areas. Problems are being studied in four areas: covering and approximation; minimum diameter spanning trees; via minimization; and, proximity and visibility. These problems have applications in areas such as computer-aided design, computer graphics, operations research, and robotics. The emphasis in this project is on the design of efficient algorithms for the problems under consideration.